Analysis and Control of Layered Media

0205148
Hansen

The focus of the proposed research is to analyze controllability and
stabilization properties of systems of partial differential equations (PDE's)
that model layered elastic media. Specific layered elastic systems we are
concerned with include constrained-layer damping models, laminated
plates, plates with surface-mounted and/or embedded actuators and
general multilayer plate theory. For a given layered structure, generally
there are many different PDE systems of varying complexity that could be
used to model the vibrations. Often the various PDE's are connected
through a perturbation, which may be singular. The central concern will be
to determine the dependence of stability and controllability upon the
perturbation parameters that connect the possible models. This way model
dependence, accuracy, and robustness properties of control and feedback
strategies can be tested. The plan is to apply this type of analysis to
practical control applications such as optimal design for constrained-layer
damping and the stabilization of elastic structures using surface-mounted
and embedded piezoelectric actuators. Several theoretical challenges
present themselves in attempting to develop control methods that are
useful for multilayer plates. In particular, it is hoped to develop a theory
of Carleman multipliers that is applicable to boundary control of layered
systems. The objective is to obtain the sharpest possible results regarding
boundary control.

Understanding the modeling, control and stabilization of layered elastic
systems is becoming increasingly important due to the rapid advances in
material sciences, fabrication of composite materials, and speed of
processing. The models considered are motivated by practical real-world
applications involving composite layered structures. These include the
design of ship hulls and airplane fuselage, sound-proofing in auto bodies
and the design of sporting goods such as skis and tennis rackets. Often, it
is possible to utilize a composite construction to achieve a far superior
design compared to what is possible with a single material. Developing a
theory for control and feedback of these structures is a challenging
problem due the complicated nature of the coupling between the layers.
On the other hand, for a model to be useful in practical engineering
applications, various crude approximations need to be made to reduce the
complexity. Thus, a large part of the goal is to quantify the connection
between an accurate, but complex mathematical model and a simplified,
but more useful engineering model. Specific problems of practical
interest which will be addressed include: feedback control of vibrating
structures using strategically placed actuators, optimal design and stability
analysis for damping in layered and laminated composites.